Equipment: Columbia University/ R/V Marcus G. Langseth Oceanographic Instrumentation

Columbia University’s Lamont-Doherty Earth Observatory (LDEO) requests funds for oceanographic instrumentation that are needed to carry out NSF-supported scientific research on board the R/V Marcus G. Langseth, a seismic and seafloor mapping research vessel that operates as part of the U.S. Academic Research Fleet (ARF). The specific suite of instrumentation requested includes a 600-meter seismic source umbilical cable, to serve as a spare since the last spare was damaged beyond repair by ice in 2023; and a CNAVx3 positioning system which provides more accurate vessel positioning information to a range of shipboard systems, including all seismic and mapping operations. These instruments will help ensure the vessel maintains it high-level capabilities to support NSF-funded research.

The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 23-525). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance, and operation of shared-use instrumentation allows NSF-funded researchers from any US university or other organization access to well-maintained, high-quality, calibrated instruments for their research. It ensures the collection of high-quality oceanographic data in support of science, reduces the cost of that research, and expands the base of potential researchers.